An Experimental Investigation of Charge and Spin Density Waves

This research involves various experiments which lead to information concerning the dynamics of charge density wave (CDW) and spin density wave (SDW) ground states. The collective mode ac response of CDW and SDW condensates will be investigated in the radio, micro, millimeter and infrared spectral range, and will emcompass a search for nonlinear excitations of the ground states. These experiments will lead to information on the interplay between collective mode and single particle excitations, including questions concerning the dynamics of internal modes of the condensates. Experiments will also be conducted under the joint application of dc and ac fields, in an attempt at exploring the possibility of quantum phenomena which may arise at low temperatures in the various broken symmetry ground states. The experiments will be conducted on various inorganic and organic linear chain compounds. %%% This research involves the study of the behavior of various types of new, ordered electron states of solids, called the charge density wave and spin density wave states. The electrical conductivity will be investigated as the function of frequency and of applied electric fields. The objective is to examine the new type of nonlinear transport phenomena which are due to the collective motion of these electron states. Because of anomalous response, these materials may also serve as novel detectors and generators, and these aspects of the field will also be examined. The experiments will be conducted in various organic and inorganic materials where such states develop.